Research Experiences for Undergraduates in Chemistry at Lehigh University

This Research Experiences for Undergraduates (REU) Site project is in the areas of chemistry and chemical engineering. For a three- year period beginning April 1992 eight (8) undergraduate students will spend ten (10) weeks engaged in research in the chemical sciences, under the direction of various members of the faculty in both the Chemistry and Chemical Engineering Departments. The summer research experience will be in projects drawn from material science and in biotechnology. Seminars, tours, and the projects will allow the chemistry and chemical engineering students to see how the two disciplines strongly overlap, and how they are synergistic.